Cooperative Agreement for Long Range Ocean Science Planning

This proposal for a cooperative agreement between Joint Oceanographic Institutions Incorporated and the National Sciences Division in long range planning for the ocean sciences. In particular, the proposal will support workshops, seminars, preparation of reports, and standing committees. Human resource and education activities will also be supported. A major effort in global change program planning including interagency liaison, coordination and planning of resources, including ships, and analysis and projects of other topics as may be identified by NSF and JOI as a representative of the ocean sciences community.